University of Maryland Middle School Probeware Project

The University of Maryland Probeware Project is a three year implementation program which will introduce 74 well-prepared middle school physical science teachers to the use of interfacing boxes and software needed to use the microcomputer as a laboratory tool.In addition, the project will monitor middle school student development of science concepts, graphing skills and science processing skills. This is a cooperative venture of the University of Maryland Science Teaching Center and schools in local school districts. Middle school physical science teachers will learn to use probeware during introductory and advanced summer workshops.